Coding and Equalization for Storage Channels

This project investigates the combination of error correcting codes and equalization on storage system communication channels, seeking maximum performance with minimum decoding complexity. These channels incur significant levels of interference between successively transmitted symbols (ISI) when operating at high linear densities and require constrained input alphabets, yet they must operate at extremely low error rates. Achieving high performance with minimum complexity under these restrictive conditions will extend and optimize the use of error correcting codes and equalization on storage systems. Specific topics addressed are: (1) Optimal division of computational complexity between coding and equalization functions on magnetic, magneto-optical and optical recording systems, (2) Analysis and theory of decision feedback equalization designed for minimal error propagation, (3) Analysis of storage systems as concatenated coding systems using inner modulation codes and outer Reed-Solomon codes, and (4) Theory of multi-dimensional equalization and coding for increased areal density. Results should apply to storage channels and to more general nonideal communications channels.